Travel Proposal: Funding to support early career scientist participation in the July 2022 Geophysics of Convergent Margins

The project will fund 15 early career scientists to attend the SEG-AGU workshop on the Geophysics of Convergent Margins being held at the University of Washington’s campus, in Seattle, WA from July 12-14 2022. These scientists will have the opportunity to network, present, and collaborate with other scientists who are studying different geophysical techniques and methods to understand the processes happening at subduction zones.

Convergent plate margins are important to further our understanding and imaging of, as these tectonic environments (1) host the largest and most destructive earthquakes and related tsunamis, as well as the largest volcanic eruptions on Earth and (2) are accompanied by large onshore/offshore basins that are suitable for geothermal and hydrocarbon natural resources. They also (3) represent natural laboratories to study fundamental cycles of the Earth System (e.g. carbon, water, etc.) and the fluid exchange between the Earth and the oceans. Convergent plate margins are one of the more challenging research environments due to their structural complexity and their dynamic evolution on geologically short time scales. Over the last decade, the development of geophysical imaging and monitoring techniques as well as numerical and laboratory modeling have been proven useful to unravel some of the complexity of subduction zone processes. This funding will be used to aid early career scientists to travel to a conference focusing on these important topics.